Mathematical Sciences: Special Project: An Undergraduate Research Program in Discrete Mathematics

Proposal Number: DMS-9629078 Gallian With one exception, every year since 1977, the principal investigator has directed a summer undergraduate research program in discrete mathematics at the University of Minnesota, Duluth. The program has an extraordinary record of attracting the nation's top talent and producing professional level research. Over the years a tradition has evolved whereby former program participants who are in graduate school or have obtained a Ph.D. have returned for lengthy visits to assist with the program. The visitors take part in all aspects of the program and serve as live-in councilors and role models for the undergraduates.